Facultative Matrotrophy in the Livebearing Fish, Gambusia geiseri: Implications for the Evolution of Matrotrophy in the Family Poeciliidae

Livebearing fishes of the Family Poeciliidae exhibit a variety of developmental strategies. In the
guppy, young develop in the ovary from the energy stored in large, yolky eggs (lecithotrophy), whereas in
the least killifish, the eggs are very small, with little yolk, and most energy for development and growth is
transferred from the mother to the embryo through a placenta-like structure (obligate matrotrophy). Other
species exhibit a mixed strategy in which energy stored in relatively large eggs is supplemented by
maternal transfer of nutrients during embryonic development (supplemental matrotrophy). The type of
strategy exhibited by a given species has been suggested to reflect the productivity of the environment
that it inhabits. Obligate matrotrophs are predicted to occur only in highly productive environments where
food for the mother is abundant and predictable. In less productive or less predictable environments,
lecithotrophy is the expected strategy. Species that exhibit supplemental matrotrophy may inhabit
unpredictable environments but be capable of exploiting excess food if it occurs and passing extra energy
on to developing offspring (facultative supplemental matrotrophy).

The largespring gambusia has traditionally been considered to be strictly lecithotrophic, but
recent studies have demonstrated mother-to-embryo transfer of nutrients in this species despite the
absence of an obvious placental structure. This study proposes to use radiolabeled nutrients to quantify
matrotrophic contribution in largespring gambusia in order to address the following questions: What is
the nature of the mother-embryo transfer surface and how does it limit the amount or types of nutrients
transferred? To what extent does the largespring gambusia exhibit matrotrophy under natural conditions?
How does matrotrophic contribution vary with environmental conditions within a given population and
among different populations? Understanding the occurrence of facultative matrotrophy, both across
habitats and temporally within habitats, may help explain the variety of developmental strategies within
the Family Poeciliidae and the relationship of those strategies to environmental productivity. Furthermore,
the strategy of facultative matrotrophy itself may reflect an adaptation to unpredictable environments that
allows species exhibiting this strategy to occupy habitats that undergo natural environmental variation.
This strategy, then, may provide an important buffer against human-induced environmental changes.